CAREER: Discovery and Transfer of Knowledge Enabling Manufacture of Polymeric Materials with Specilized Optical Characteristics

Program: Physical Foundations of Enabling Technologies CAREER Competition Proposal Number: ECS-9734438 Principle Investigator: Ann Mescher Title: CAREER: Discovery and transfer of knowledge enabling manufacture of polymer materials with specialized optical characteristics Abstract The proposed research is related to numerical modeling and experimental characterization of polymer optical fibers. Through strong collaboration with industrial sponsors, the PI will receive specific processing conditions to simulate the manufacturing process and to verify experimentally numerical predictions regarding to the refractive index profile and bandwidth of the polymer fiber. The educational plan includes the development of an interdisciplinary graduate course, and to establish collaboration with the ECSEL coalition and an outreach effort to women and minorities in engineering. This proposal is recommended for a CAREER award at $200,000 for 48 months. T. P. Lee February 13, 1998